Evolution in a Vortex: Public Outreach on Freshwater Science in the Congo River

This Communicating Research to Public Audiences (CRPA) proposal is based upon Dr. Melanie Stiassny's and her associates' taxonomic and biodiversity research of the fauna in the lower Congo River. The PI has used innovative hydrologic modeling, remote sensing, habitat mapping and spatial analysis to explore and explain the biological richness of this unique river system. The CRPA request will support the production of a short documentary film that will be produced and distributed by the American Museum of Natural History's high definition video current science program Science Bulletins. The video will be captioned in both French and Spanish to make it accessible to colleagues in Africa and Spanish-speaking students throughout the United States. In addition, the AMNH will host the PI presenting a public program about her research discoveries. This live program will be rebroadcast by the New York Academy of Science via their podcast series "Science and the City."